An Engineering Awareness Program in Offshore Technology for High Potential High School Students

9552908 Fletcher Texas A&M University will initiate a four-week, summer commuter, Young Scholars project in Engineering for 20 students entering grades 11 and 12. Students will be provided the opportunity to participate in a variety of activities related to engineering and offshore technology. Activities include classroom instruction and discussions on engineering careers and opportunities, hands-on laboratory experimentation, discussions on ethics and the ocean environment, and individual and team research.